2009 Linear Collider Workshop of the Americas; Albuquerque, NM; September 29 - October 3, 2009

This award will provide partial support for junior physicists to attend the 2009 Linear Collider Workshop of the Americas. The University of New Mexico will host the 2009 Linear Collider Workshop of the Americas on the campus from September 29 through October 3, 2009. The event will include plenary and parallel sessions covering topics of importance to accelerator and detector development. Attendance by junior members of the community is a priority for this meeting. The funds will be distributed following application by the candidates to a panel composed of members of the organizing committee.